Industry/University Cooperative Research Center for Micro- Engineered Ceramics - Evaluator Support

9526156 Buckmelter This award is to provide support for the NSF Evaluator for the Industry/University Cooperative Research Center (IUCRC) on Microengineered Ceramics at the University of New Mexico. The Evaluator will maintain a history of the Center, establish and maintain close contact with the faculty and the industrial affiliates of the Center, provide an annual report on the business meetings of the Industrial Advisory Board of the Center, attend the semi-annual meetings of the Industrial Advisory Board of the Center, inform the NSF Program Director of any situations in the Center that are deemed necessary, and attend the annual IUCRC Evaluators Meetings.